New Metal Catalyzed Organic Transformations

The Organic Synthesis Program supports the work of Dr. K. Barry Sharpless. Sharpless, Prof. of Chemistry at MIT, continues his pioneering investigations of new reagents for organic synthesis. His current work is, in part, directed towards examining how metals complex to existing groups in a molecule to direct new reactions to a particular site. Notable new directions include trying to develop methods that do not require an existing tether to direct the chemistry. Sharpless's group continues to investigate the mechanistic details of ligand-accelerated catalysis of reactions, and how this leads to the remarkable enantioselectivity observed for the reactions. As part of his mechanistic investigations he has recently discovered a process for dihydroxylating an isolated alkene bond without prior binding of the reagent to the substrate. This discovery opens a whole new arena for scientific enquiry, and has great potential for synthetic chemists. His group is trying to also understand the origins of this process. Sharpless will "comb the periodic table" looking for new reagents to add to the arsenal already available to the synthesis chemist. Initial scrutiny will be given to finding unique metal/ hydroperoxide combinations to carry out asymmetric epoxidation to isolated alkenes. A unique assay system, analgous to that used for screening for bioactivity of molecules, will be employed to examine large series of reactions.